Automotive 2020 Scholarship Program

0220554 Abstract Christian Wagner
The objective of this faculty's work from Oakland University is to increase the number of college students entering the high technology workforce in computer science, engineering, mathematics, and statistics. Their efforts involve contact with the area high schools and the city administration of Detroit. Their plan is to give special consideration to students in the Automotive 2020 program. Their efforts focus on the Detroit Public system. There are crucial curriculum modifications at Oakland University designed to support the students in this plan. All the students in this program will have a required interdisciplinary course focusing on professionalism and ethics in technology. A student completing his/her program in 4 years instead of 5 or 6 is a goal of the plan. Finally their student population is involved with summer internships with local industries on various research projects. Oakland University has partnerships with a number of universities. These are University of South Carolina, Anna University (India), Hanover University (Germany) and Cariff University (Wales). Oakland University has partnerships with a list of technology and industrial firms.